Continuation of Studies of Low and Middle Latitude Particle Precipitation

This grant continues an observational and theoretical program involving a study of the effects of particle precipitation at low/mid-latitudes during magnetic storm events. The aim is to further our understanding of the exchange of energy between the magnetosphere, ionosphere and atmosphere during magnetic storms. It represents a continuation of efforts currently supported by NSF in which the atmospheric emissions at mid- and low-latitudes are studied using a variety of optical instruments. The observations are made principally from McDonald Observatory in southwestern Texas, where the instrumentation views the emission layer at mid-latitudes near 40 degrees geomagnetic latitude. These data have been complemented by observations taken at low latitudes from Hawaii and Brazil, which view the emission layer near 22 degrees and 12 degrees geomagnetic latitude, respectively. Previous studies have led to a more detailed description of the spectral characteristics of the emissions but they have also exposed many questions that need addressing. In particular, the ultimate goal is to establish a self consistent description of the mid and low-latitude emissions that occur during magnetic storms and include the properties of the more thoroughly described stable auroral red (SAR) arc and the type-A aurora that occur at higher latitudes.